REU Site: Chemistry Research for Undergraduate Students at South Dakota State University

The Chemistry Division award supports a Research Experiences for Undergraduates (REU) site at South Dakota State University for the summers of 2004-2006. The site is cofunded by the Biology Directorate. Jihong Cole-Dai is the site's program director and James Rice is co-principal investigator. Faculty members from the Department of Chemistry and Biochemistry will serve as REU mentors to six students, who will each participate in a ten-week program. The students will be recruited nationally as well as regionally from South Dakota and states that neighbor eastern South Dakota. The proposed research projects will include analytical, environmental, biochemical, physical, materials and organic chemistry. The program will conduct periodic assessments and comprehensive assessments at the end of each summer. All participants will engage in a REU seminar program in the final week.